NSF-CGP Fellowship: Development of a Geant4-based Simulation of the BELLE Detector at the KEK b-Factory

Izen 9722501 This award supports a collaborative research project between Dr. Joseph Izen of the University of Texas at Dallas and Dr. Tadao Nozaki of the National Laboratory for High Energy Physics (KEK) in Tsukuba, Japan on "Development of a Geant4- based Simulation of the BELLE Detector at the KEK b- Factory." Dr. Izen will spend one year working on this project in Japan. The BELLE and BABAR experiments under construction in Japan and the United States will explore CP violating asymmetries in the decays of select B mesons and will test theories of why those mesons and their antiparticles have slight differences in behavior. A new computer language is being developed and applied to the management and interpretation of data from high energy physics experiments. The goal of this project is to implement a BELLE simulation using the new language. Recording, reconstructing and extracting physics from increasingly large data samples is a formidable challenge. Particle physicists from the United States, Japan and around the world are reinventing the computing environment of their experiments. This collaborative research project will provide information on software and design strategies that will benefit high energy physics experiments now under development in both the United States and Japan. The project is supported under the Science Fellowship Program between the National Science Foundation and the Japan Foundation Center for Global Partnership. ***